Science Minders Project

The goal of the Science Minders project is to increase the interest and self-esteem of girls relative to science. Since many early adolescents seek economic independency by "baby-sitting," the Science Minders project will develop materials designed to permit early adolescents to teach science to small groups of young children. The materials will make the early adolescents' child-caring providing more successful and significantly enhance their attitudes and comfort with science. These materials will include a book containing informal science activities and activity resources, a child-development guide, first-aid and emergency procedures and child-care tips; and two training videos, one to demonstrate how to use the materials effectively with young children, and one to train adults to train adolescents as child-care providers. These materials will be nationally promoted and disseminated by a commercial publisher and through the national network of 400 YWCAs in 4,000 locations throughout the United States.